4th International Airborne Remote Sensing Conference; Ottawa, Canada; June 21-24, 1999

ATM-9902173
Walton, John J.
ERIM International, Inc.
Title: 4th International Airborne Remote Sensing Conference Support (June 1999)

This grant provides partial support of the fourth of a series of international conferences on applications of airborne remote sensing, to be held in Ottawa, Canada on June 21-24, 1999. About 800 participants from 40 countries are expected. There will be strong participation by U.S. researchers from universities, government laboratories, and industry. In addition to about 300 technical presentations, there will be an exhibition of aircraft equipped with remote sensing instruments at a nearby airfield. The conference is an effective way to exchange new ideas and technical information on the latest developments and capabilities of airborne remote sensing systems.